Workshop: Geometry and Topology of Quotients, December 5-8, 2002, Tucson, Arizona

DMS-0217057

P. Foth, P. Bressler, Y. Hu, and J. Lu

This award provides partial support for active research mathematicians
with limited means of support to attend and participate in the
Workshop on "Geometry and Topology of Quotients" to be held at the
University of Arizona in December of 2002. The main speakers are
Igor Dolgachev (Michigan), Mikhail Kapranov (Toronto)*,
Janos Kollar (Princeton)*, Robert MacPherson (IAS and Princeton)*,
Jun Li (Stanford), Reyer Sjamaar (Cornell), (* - to be confirmed). The
plenary lectures will survey recent progress and current directions of
research in Geometric Invariant theory and Symplectic Reductions,
explain connections with other disciplines and applications to physics. In
addition to principal lectures, there will be sessions of contributed
talks and round-table discussions. The workshop will provide a forum for
young researchers to meet and interact with leading specialists as well
as for interactions across the traditional boundaries of
disciplines. Women and minority researchers are encouraged to participate. Further
information is available at

http://www.math.arizona.edu/~foth/gtq.html
------------------------------------------------------------